Laboratory Equipment to Improve Undergraduate Instruction inPhysiological Psychology

This project will provide laboratory equipment to improve undergraduate instruction in the physiological processes involved in human cognition. The equipment purchased would present, record and analyze event-related potentials (ERP). Students taking courses in the physiological basis of behavior would learn the fundamental principles involved in ERPs, gain experience in its operation in a variety of experiments investigating the relationship between physiology and cognition, and would learn experimental applications of this technique.